Algebraic Geometry of Integrable Systems and Singular Varieties

Nevins will carry out two clusters of projects combining ideas, methods,
and problems of algebraic geometry with those of representation theory and
mathematical physics. The first collection of problems introduces two new
algebro-geometric methods into the study of integrable systems and
proposes to solve a collection of established problems in that area; these
methods are also expected to illuminate the geometry of certain algebraic
varieties and provide a new tool in representation theory. The second
collection of problems focuses on deepening and generalizing the technique
of "motivic integration" from algebraic geometry to unify, extend, and
explain several facets of the geometry of singular algebraic varieties.

Polynomial equations are among the simplest kinds of mathematical
equations, yet an understanding of the sets of solutions of such equations
has remarkable utility in a wide variety of practical problems. Nevins
will apply techniques from the geometric study of polynomial equations, a
field known as ``algebraic geometry,'' to explore and explain the behavior
of both particle systems and wave motion in mathematical physics. In the
opposite direction, he will expand on methods inspired by very recent
developments in string theory and will apply these methods to elucidate
the fundamental structure of the solution sets of polynomial equations.